U.S.-Germany Workshop on New Polymer Synthesis and Properties; Leipzig, Germany; September 8-15, 1996

This award supports the participation of eleven US materials scientists from eleven different universities in a US-Germany workshop examining the frontiers of knowledge about the properties of polymers and how to synthesize them. The meeting was co-organized by Julia Kornfeld of Caltech, Bruce Novak of University of Massachusetts, Friedrich Kremer of the University of Leipzig and Rudolf Zentel of the University of Mainz. This will be the first such workshop held in Germany since the unification of East and West Germany; the siting of the workshop in Leipzig was intended to emphasize the contributions to this field that were stimulated by the blending of the two research communities since that time. The US and Germany are two leading countries in the field of polymer science, and this meeting will benefit both countries by fostering cooperation among the talented participants who are all at early stages in their scientific careers. Polymers are highly deserving of special attention through collaboration between world class scientists. The demands placed on molecularly engineered materials requires the use of polymers possessing predetermined properties and behaviors. Many properties depend strongly on small variations in fine structural features. Architecturally well-defined polymeric materials will play key roles in advancing existing materials and in developing emerging technologies including optical fibers, electronic materials and biomedical polymers. This workshop will examine the state of the art as well as areas for fruitful collaboration in the areas of preparation, characterization and applications of several classes of polymers.